CAREER: Resource Management in Mobile ad hoc Networks - the Spatial Dimension

The goal of the proposed research is to develop a comprehensive
understanding of the spatial aspect of distributed computing in
mobile systems. Traditionally, events in a distributed computation
are ordered by time. Scalar and vector clocks are used to represent
logical time and causal dependencies. However, the mobility of nodes
injects a new spatial dimension into the problem.

The physical and network distances between nodes in a mobile
network are not correlated. Moreover, some wireless links in a mobile
network may be unidirectional. Hence, unlike physical distance, the
network distance between nodes is not a symmetric relation. Finally,
if requests of two mobile nodes are being prioritized on the basis of
their respective distances from a third (resource) node, their relative
priority can change with time. This is in contrast to the immutable
relative ordering of events based on time. Hence, if distance is one of
the criteria for ordering requests, existing solutions for problems
like mutual exclusion (using logical clocks) cannot be efficiently used
for resource allocation in mobile computing.

We will develop a new formal representation of the spatial-temporal
relationship between events in mobile computing. Space-time vectors are
a step in this direction. A theory for a possibly immutable ordering
of events based on their spatial-temporal coordinates will be developed.
Such an ordering of requests could be used for resource deadlock free,
starvation free and fair resource management. New protocols will be
developed at the MAC sub-layer enabling nodes to communicate using
unidirectional wireless links. We will develop new routing protocols that
utilize this MAC sub-layer protocol, and can correctly route packets
in a wireless mobile network with a combination of unidirectional and
bidirectional links.

Subsequently, the performance of these solutions will be evaluated
through simulation experiments and prototyping. Graduate and undergraduate
students will actively participate in every stage of the project.